MRI Planning Grant: Scanning Tunneling Microscopy

This planning grant will allow the Principal Investigator to develop a research proposal for a program in ultrahigh vacuum scanning tunneling microscopy. The research areas of interest are surface modification on a nanometer scale, magnetic force microscopy of thin magnetic films, and the structural and electronic properties of semiconductor surfaces.